Workshop: International Conference on Software Engineering 2009: Student Travel Support

This award supports travel for students participating in the Doctoral Symposium at the International Conference on Software Engineering in Vancouver, Canada, in May 2009. The Symposium provides a forum for Ph.D. students to discuss their research goals before a panel of experts in order to receive guidance on their research and research careers.